Trade and Trade Policy in Antebellum America

This project aims to enhance our understanding of the role that
international trade and U.S. trade policy has played in American economic
history. This project focuses specifically on the antebellum period, from
roughly 1815 to 1860. (My previous research focused on the late nineteenth
and early twentieth century period, from 1870 to 1913.) The short term
objective of the research is to produce articles for publication in
scholarly economic journals. The long term objective is to produce a
comprehensive book-length study of the history of trade and trade policy in
the United States. The research on the antebellum period focuses, in
particular, on three issues. The first issue is the extent to which the
United States possessed market power in terms of its cotton exports. By
estimating the elasticity of export demand facing the United States, the
research will give us some indication of the possible economic gains from
imposing an optimal export tax during this period. The second issue is the
role of import tariffs in supporting the early growth and development of the
cotton textile industry. Economists have been divided about whether the
cotton textile industry depended on tariff protection or not, and this
research aims to provide greater insight into the role of import protection
during this period. The third issue is the pre-Civil War political conflict
between the North and the South over the tariff. This research will focus
on Congressional votes on the tariff issue in the antebellum period and
determine whether Midwestern economic interests played a critical role in
supporting the anti-tariff views of the South and thereby helped push
tariffs down from 60 percent in the early 1830s to 25 percent by 1860.